"IUTAM Symposium on Computational Mechanics of Materials" to be held June 15-18, 1993

This grant is for the partial support of an international (IUTAM) symposium on computational mechanics of materials to be held during June 15-18, 1993 at Brown University, Providence Rhode Island, U.S.A. The symposium will allow the presentation of state-of-the-art research findings in the area of computational mechanics of materials to the most outstanding and active workers in that emerging field from academe, government laboratories and industry. This field differs in scope from other branches of computational mechanics by placing a heavy emphasis on micromechanics and material characterization and design. It also utilizes methodologies not employed in other segments of computational mechanics.